MRI: Parallel Computer Equipment for the Levich Institute of CCNY

EIA-0078826
Koplik, Joel
CUNY City College

MRI: Parallel Computer Equipment for the Levich Institute of CCNY

The faculty of the Levich Institute of the City College of New York requests funding for the purchase of a medium-scale parallel computer system for research in fluid mechanics. The equipment will support research activities in (1) shear-induced diffusion in suspensions, (2) polymer blends and instabilities, (3) complex multiphase flows, (4) molecular fluid mechanics and (5) interfacial and surfactant dynamics. In addition, the proposed system will be invaluable for broad educational purposes: developing the conceptual familiarity, hands-on experience, and hardware infrastructure required thinking and working computationally in parallel terms